High Relative Accuracy Iterative Algorithms for Large Scale Matrix Eigenvalue Problems with Applications

Eigenvalue computation is a fundamental problem in numerical
linear algebra. While there are numerous established algorithms
for this, they do not guarantee in general to compute, in a
floating point arithmetic, smaller eigenvalues to high relative
accuracy. Indeed, the relative errors of smaller eigenvalues
computed by conventional algorithms are proportional to the
condition number of the matrix. Research over the last two
decades has resulted in several classes of special matrices
for which the eigenvalues/eigenvectors can be computed to high
relative accuracy (i.e. independent of the condition number).
All existing high relative accuracy algorithms, however, appear
to concern small (dense) matrices only. Yet, large matrices are
often inherently ill-conditioned and it is typically a few
smaller eigenvalues that are of interests. The goals of this
proposal are to study high relative accuracy iterative
algorithms for computing a few eigenvalues/eigenvectors of a
large symmetric positive definite matrix. The investigator will
develop algorithms for matrices arising in some important
applications such as discretization of differential operators
and dimensionality reduction in machine learning, where special
structure/properties of the matrices may be exploited to
achieve higher accuracy.

Spectral (eigenvalue) analysis is a widely used mathematical
tool in science and engineering. Eigenvalues of differential
operators describe the natural vibrating frequencies of
mechanical structures. Dimensionality reduction of
high-dimensional data in machine learning often leads to
minimization of certain quadratic functionals, the solutions of
which are eigenvectors. Solving such eigenvalue problems to
high relative accuracy pose a challenge to existing algorithms.
Therefore, the proposed works will not only advance theoretical
foundations and algorithm developments for large scale
eigenvalue problems, but also contribute to the general areas
of applied science/engineering and machine learning by
significantly improving the accuracy of the algorithms used in
these applications.